Immobilization of Cell Adhesion Peptides to Improve Cell Culture

Numerous anchorage-dependent cells show improved attachment, improved growth and reduced serum requirements when cultured on surfaces coated with extracellular matrix components (ECM). The major proteins of ECM are fibronectin, laminin and type IV collagen, and most of the cell adhesion activities of these proteins reside in two peptide segments, RCG and YIGSR. Since these peptides are active when immobilized onto surfaces, the research proposed here will covalently immobilize these peptides onto polystyrene, and then cell types will be assayed for attachment and cell growth. This technology should provide inexpensive culture products and improve the efficiency of culturing many types of anchorage-dependent animal cells.